SHINE Workshop Coordination

SHINE (Solar Heliospheric and INterplanetary Environment) is an affiliation of researchers within the solar, interplanetary, and heliospheric communities dedicated to promoting an enhanced understanding of the processes by which energy in the form of magnetic fields and particles are produced by the Sun and/or accelerated in interplanetary space, and on the mechanisms by which these fields and particles are transported to Earth through the inner heliosphere. A focal point for the SHINE research activities and targeted campaigns is the annual four-day SHINE workshop. This grant provides financial support for the participation of graduate students, postdoctoral fellows and a few select international scientists. It also defrays minimal costs associated with the management and organization of the next three workshops. For more information on SHINE see, http://www.shinegroup.org.